A Theoretical Study of Hadronic Interactions and Intermediate Energy Nuclear Reactions

This grant supports nuclear theory research by Professors G. E. Walker and J. T. Londergan. The work will continue to study relativistic effects in the nuclear response function, meson production reactions and the quark/gluon structure of the nucleon.